Physiologic Mechanisms Underlying Reproduction

Laboratory research has contributed greatly to our understanding of reproductive physiology and how it is regulated by external environmental factors such as day length, nutrition, exercise and interactions with conspecifics. However, in these studies, each variable is considered independently and under controlled conditions. This is clearly not the case in the natural habitat where social and ecological factors are intertwined to influence behavior and its physiological underpinnings. To study physiology under field conditions requires animal capture and blood-drawing which are expensive and risky procedures that are traumatic for both biologists and animals. To overcome this major obstacle, Dr. Gudermuth will develop and validate the use of fecal steroid analyses to characterize gonadal function in both domestic and wild canine species. This non-capture, non-invasive methodology provides a means to collect and process vital information concerning the reproductive physiology of animals living in their natural habitat which would not have previously been possible. Moreover, this assay will have an enormous impact on field research, wildlife conservation and management, and practical aspects of veterinary care of dogs.